Travel Support for IEEE INFOCOM 2003 Conference; San Francisco, CA; March 30 through April 3, 2003

This award will provide travel support for approximately twelve graduate students, post-docs and junior faculty members in the U.S. to attend the IEEE Infocom 2003 Conference being held in San Francisco, CA from March 30 to April 3, 2003.The travel award will target graduate students, since attending conferences is an important part of their educational experience, and they often have limited funds. Infocom is a preeminent international conference in computer communications, covering a wide sprectrum of theoretical and applied research in networking.